Topics in class field theory and arithmetic geometry

In this project, the principal investigator will study several topics in number theory and algebraic geometry, areas of mathematics that have grown from the study of integers and the study of solutions to polynomial equations, respectively. One problem of focus has remained unsolved since the 19th century and concerns the construction of one-variable polynomial equations such that all the symmetries of the solution set commute. In addition, the investigator will study the points with rational number coordinates on surfaces defined by a multivariable polynomial of degree 3, because this is the frontier just beyond the cases that are already fully understood qualitatively—cases of lower dimension and/or lower degree. The project will also include training opportunities for graduate students, and the creation of a modern graduate-level textbook on number theory. This text, which will be written by the investigator and Andrew V. Sutherland, will serve as an alternative to the decades-old classic textbooks, and will better prepare students for current research in the field. An electronic version of the book will be freely provided on the investigator's website to maximize its impact.

More specifically, the principal investigator will study a new reformulation of global class field theory that involves neither ray class group nor idele groups—at least not explicitly—and that is closer to the known cases of explicit class field theory. Given a number field, the reformulation involves a certain module-theoretic category, and the challenge is to find Galois-equivariant realization maps from the isomorphism classes of this category to the maximal abelian extension of the number field. These realization maps are known to exist for the rational numbers and imaginary quadratic number fields, and there is recent partial evidence pointing to their existence for other number fields as well. In another direction, the principal investigator will study the descent obstruction to the existence of rational points on diagonal cubic surfaces, coming from a particular "magic square torsor." The analogue for rational function fields may be amenable to additional techniques, and the investigator will advise graduate students on carrying out such investigations. This exploration has the potential to answer the longstanding question on the existence of an algorithm for deciding whether such a surface has a rational point.